Undergraduate Research Summit; Bates College, Lewiston, ME; Summer 2003

With this award, the Special Projects Program of the Division of Chemistry is supporting Dr. Thomas J. Wenzel of the Department of Chemistry at Bates College, who will organize and conduct a workshop entitled the "Undergraduate Research Summit". The workshop will examine issues involved in undertaking and sustaining chemistry research at predominantly undergraduate institutions (PUIs). The summit will be developed by a 12 person steering committee working in close collaboration with the Chemistry Division of the Council on Undergraduate Research. The workshop will be attended by a diverse range of stakeholders including people from a variety of types of PUIs, government agencies and laboratories, and professional organizations. The Chemistry Division of CUR will lead in disseminating the report and working to implement its recommendations.